MRI: Acquisition of a Roche/454 GS-Jr for Research and Training in Microbiology at Alabama State University

This Major Research Instrumentation award funds the acquisition of a "next generation" sequencer to train students and conduct cutting-edge research at Alabama State University and surrounding regional institutions. The new sequencer is a massively parallel pyrosequencing instrument that will be used for the sequencing of microbial communities, transcriptomes, and microbial genomes. The new sequencer is utilized for both courses (Biochemistry to Microbial Ecology) and research projects for undergrads, grads, and faculty at ASU and beyond. The diverse and innovative research projects that utilize the sequencer span a range of topics that include physical chemistry, fish genetics, nanotechnology, microbial/mitochondrial genomes, microbial ecology and physiology. The research projects help to advance the Alabama State University goals of student training and research resource development. The results of these research and teaching efforts will be broadly disseminated through abstracts and peer reviewed publications, as well as by active participation of students and faculty at professional meetings